Collaborative Research: Hotspot Rift Interaction & Geochemistry of the North Atlantic Mantle: A U.S.-Norwegian Expedition to Sample the Aegir Ridge "Hole" in the Iceland Hotspot

Funds are provided to support the U.S. contribution to a collaborative program with Norwegian investigators to sample the extinct Aegir Ridge, followed by onshore geochemical analyses and geodynamic modeling. Norwegian co-PIs have extensive experience in geophysical field work and geologic sampling in this region and will provide ~10 days of ship time as well as the necessary equipment to dredge the exposed scarps of the Aegir ridge axis. Major- and trace-elements studies, as well as isotope (Pb, Nd, Hf, Sr) analyses will be performed and 3D numerical models of continental rift-hotspot interaction will be developed which will define the physical conditions needed to explain the data, including quantitatively testing of the possible geologic scenarios.

The project provides training for students and promotes international collaboration.